Collaborative Research: Engineering salt marsh restoration to maximize denitrification - elevation and species interactions

1438092 (Mortazavi) and 1438235 (Ortmann). Coastal wetlands represent a small fraction of all wetland areas, but are unique as they also host more than a significant fraction of the world's population. Coastal marsh ecosystems are dynamically linked to human dwellings and industry, and the impact humans have on these ecosystems can be considerable. This coupled human - marsh system has important implications, as the marshes provide desirable ecosystem services such as nutrient filtering, flood control, and carbon sequestration. Because of these services and the loss of marshes through urbanization, restoration of marshes has become an important tool in coastal management. Nitrogen (N) removal is an important service of marshes, which contributes to the sustainability of coastal ecosystems by mitigating eutrophication. Currently marshes are constructed with the assumption that denitrification will contribute significantly to N removal once vegetation is in place; however, studies suggest that only some of desirable ecosystem services are restored by such efforts. Specific information is missing from marsh restoration literature, which could be used to engineer marshes that are more effective at N removal. This research specifically addresses this issue.

The primary objective of this research is to elucidate the impact of species identity and marsh elevation on the N removal capacity of restored marsh ecosystems to provide guidance in the engineering of sustainable marsh ecosystem which also maximize N removal. To achieve this objective the project addresses the following hypotheses: (i) rates of N removal in Juncus romerianus are higher than in Spartina alterniflora marshes (species effect), (ii) there exists an optimum marsh surface elevation where N removal is maximized (elevation effect), and (iii) at this optimal elevation, the marsh will be most resilient to increased nutrients (response to elevated N input). These hypotheses will be addressed in the field as well as with field-mesocosms in Alabama coastal marshes over a three-year period. This approach enables us to manipulate marsh surface elevation with respect to mean sea level to identify optimum conditions for N removal. Project results will be used to develop specific guidelines for marsh engineering projects to ensure N removal, an important ecosystem service, is maximized. Furthermore, a better understanding of the vegetation-elevation-microbial community interactions, providing fundamental knowledge about N cycling in coastal marshes, will be achieved. The synthesis of results from the research will provide the necessary data to inform restoration strategies, including sediment subsidy and species selection, to optimize N removal, and thus mitigate eutrophication, by engineered marshes. Coastal marshes provide important ecosystem services such as filtering sediments, moderating flooding and protecting inland developments from periodic storms, and provide nutrition and habitat for commercially important resources. The research is significant because it will help advance our understanding of a complex ecological system, and will help us refine efforts for maximizing an ecosystem service (i.e. N removal) provided by engineered marshes. The data collected during this project will be immediately applicable to coastal managers and groups carrying out marsh reconstruction projects. Results will disseminated to the local stakeholders including land managers, local government decision makers, and residents. To place the findings in a broader context, teaching material will be developed that can be used by the education and outreach (E&O) program of the Dauphin Island Sea Lab, known as the Discovery Hall Programs (DHP), one of the largest coastal science E&O programs in the northern Gulf of Mexico region.